MARGINS Office Support

0605682
Abers

Abstract

Funds are provided for the support of MARGINS Program office at Boston University. The MARGINS Program provides a focal point for research on the dynamic evolution of continental margins. The Program office aims to enhance the outcome of individual research projects by providing communication, data archiving and access, planning for multi-disciplinary experiments and providing advice through the steering committee, holding workshops and theoretical institutes, and developing an educational and outreach program.